U.S.-Argentina Program: Harmonic Analysis and Numerical Analysis Problems in MRI and PDE

0126272
Nochetto

This US-Argentina award will fund a collaborative project between Dr. Ricardo H. Nochetto, University of Maryland, College Park (UMCP), in collaboration with Drs. Hugo A. Aimar and Eleonar O. Harboure, Instituto de Matematica Aplicada del Litoral (IMAL), Universidad Nacional del Litoral in Santa Fe, Argentina, and Dr. Carlos Cabrelli of FCEyN, Universidad de Buenos Aires in Argentina. Their research is a mix of classical and functional analysis as applied to the practical, numerical solution of partial differential equations (PDE). The problem is one of approximating solutions by means of mathematical objects that can be computed.

This project will build upon the strengths and complementary interests of each group, to collaborate on the topics of harmonic and numerical analysis. UMCP has expertise on adaptivity for linear and nonlinear PDE as well as basic wavelet theory and applications. The IMAL has expertise on wavelet applications to PDE and Besov spaces. They will facilitate an ongoing collaboration by bringing both sides together for six visits over two years. In addition, they will include advanced graduate students and postdocs. This pairing will promote the cross-fertilization of ideas and techniques between the two research areas, institutions and countries.